REU Site for Smart Sensors and Integrated Microsystems Research

This award will provide funding to Wayne State University (WSU)for an REU Site in various aspects of sensor and microsystem design, fabrication, and integration, under the direction of Dr. Gregory Auner. The project will involve of minimum of 12 undergraduate students and 4 faculty annually in individual research projects covering topics which include electronic, magnetic, and photonic materials, devices, and associated interactive electronics. Students will be exposed to a variety of experiments and measuring techniques, as part of the ongoing research programs in Smart Sensors and Integrated Microsystems (SSIM), which is a central facility in the College of Engineering with participating faculty from engineering, physics, chemistry, and medicine as well as researchers from other universities and the private sector. The students will be provided with a comprehensive research and educational experience in smart sensors and integrated microsystems and an increased awareness of the post-baccalaureate opportunities in graduate programs in science and engineering, or in industrial research settings.